Adventures in Engineering

The University of Alabama @ Huntsville will initiate a three-week, residential Young Scholars project in Engineering which will offer science enrichment activities for 30 precollege students entering grades 10 and 11. The program is entitled "Adventures in Engineering" and will offer a broad exposure to electrical, civil and chemical/mechanical engineering. The first two weeks consist of career exploration activities, engineering ethics, the engineering method, intensive coverage of course material (normally taught at the college sophomore level) and a variety of hands-on laboratory experiences. The third week consists of additional career opportunity exploration, industrial tours and an intensive engineering design experience in one of the three stressed areas of engineering, culminating in an oral presentation by each student on his design.